CAREER: Multilevel Mediation Models to Study the Impact of Teacher Development on Student Achievement in Mathematics

This is a Faculty Early Career Development Program (CAREER) project. The CAREER program is a National Science Foundation-wide activity that offers the most prestigious awards in support of junior faculty who exemplify the role of teacher-scholars through outstanding research, excellent education and the integration of education and research. The intellectual merit and broader impacts of this study lie in two complementary contributions of the project. First, the development of the statistical framework for the design of multilevel mediation studies has significant potential for broad impact because it develops a core platform that is transferable to other STEM (science, technology, engineering, and mathematics) education areas and STEM disciplines. Second, the development of software and curricular materials to implement this framework further capitalize on the promise of this work because it distributes the results in an accessible manner to diverse sets of research and practitioner groups across STEM education areas and STEM disciplines. Together, the components of this project will substantially expand the scope and quality of evidence generated through mathematics professional development and, more generally, multilevel mediation studies throughout STEM areas by increasing researchers' capacity to design valid and comprehensive studies of the theories of action and change that underlie research programs.

This project will develop a comprehensive framework to inform and guide the analytic design of teacher professional development studies in mathematics. The proposed framework incorporates four integrated research and education components: (1) develop statistical formulas and tools to guide the optimal design of experimental and non-experimental multilevel mediation studies in the presence of measurement error, (2) develop empirical estimates of the parameters needed to implement these formulas to design teacher development studies in mathematics, (3) develop free and accessible software to execute this framework, and (4) develop training materials and conduct workshops on the framework to improve the capacity of the field to design effective and efficient studies of teacher development. An essential goal of the research is to advance a science of teaching and learning in ways that traverse both research and education.